Dynamics of Single Quantum Optical Systems (Physics)

Research will exploit repeated measurement techniques which were developed both as preparation tools for unusual quantum systems and to monitor the dynamics of quantum systems. Considering instabilities and chaos, it will be determined whether a class of quantum measurements exists that leads to classical-type behavior. It is conjectured that quantum nondemolition measurements may play such a privileged role. Work will concentrate primarily on micromaser-type situations, where repeated measurements are handled simply, but also on other examples such as ion traps.